I3 Berkeley Science Connections Program

Intellectual Merit
The I3 Berkeley Science Connections Program (I3BSC) will build bridges from the undergraduate
to graduate levels for traditionally underrepresented (UR) students.
I3BSC focuses on the mathematical and physical sciences (MPS) in an effort to open the door for
students from diverse backgrounds to key fields of modern science, in which underrepresentation
of both ethnic minorities and women of all ethnicities is long-standing and remains severe. New
bridges to and into the beginning years of graduate training will be built on research experiences
of increasing intensity for undergraduates and incoming graduate students. The research activities
will be fortified with systematic access to structured academic enrichment and professional
development opportunities and resources, as well as a network of peers, near peers and scientists
who are further advanced on the academic pathway and will serve as mentors.
I3BSC targets the transition into graduate school for undergraduates in their junior and senior
years and through the first two years of doctoral study. It focuses on the advancement of students
into MPS careers, particularly academic careers, incorporating and also going beyond the goals of
retention in science majors and completion of degrees.
I3BSC’s approaches lend themselves to study and evaluation. We will examine if and how the
variety and frequency of interventions effects UR advancement in science and the influence of
particular interventions. For example, the mentoring aspect of the project will provide a unique
window into learning how mentoring affects not only the mentee, but also the mentor. While
there is a growing set of literature around instructional beliefs and practices within the classroom
there is little published about this more informal aspect of academic life.
Broader Impacts
I3BSC is designed to take the highly effective work of four separate NSF programs that now work
independently from each other at Berkeley, each operating with different MPS disciplinary foci
and targeting different points on the educational pathway. I3BSC extends each of the four
approaches to make them more uniformly and consistently available for all UR students at UC
Berkeley who are majoring in any of the MPS departments at Berkeley or are entering any of our
MPS doctoral programs.
I3BSC will create new synergies that extend the work of these four key NSF-supported programs:
Berkeley’s NSF-California Alliance for Minority Participation Program (CAMP), which supports
students across STEM fields in undergraduate research experiences, community building and
professional development; Berkeley’s NSF-AGEP program, The Berkeley Edge, which increases
URM doctoral degree production, and advances PhD students and post-doctoral fellows to
professorial careers; a NSF-supported program for mentoring lower-division students in Physics,
the Compass and Society for Women in the Physical Sciences joint mentoring program; The
NSF-Explorations in Statistics Research Program, which is an intensive week-long program for
undergraduates to explore cutting edge research in Statistics. We will include students from all
groups that add diversity under the post-Proposition 209 definition (URMs, women, students with
disabilities, first-generation to college), because these groups are severely underrepresented in the
mathematical and physical sciences, with a primary focus and priority given to those Berkeley
students who are eligible for participation in CAMP, Compass-SWPS-PURNA, and AGEP.